Constitutive Modeling and Finite Element Analysis of Shape Memory Alloys

9907974
The objective of this research is the development and implementation of a one-dimensional constitutive theory for solid-solid martensitic phase transformations under full and particle cyclic loading. The research shall be realized in three specific stages: 1) theoretical constitutive developments: 2) numerical implementation and 3) event simulation and modeling. The theoretical constitutive stage consist of development of a one-dimensional constitutive model for shape memory alloys developed within a phase space formulation after Kasper, with the purpose of capturing both the shape memory effect and the pseudoelasticity effect. The numerical stage will involve casting the constitutive model developed in Stage 1 into a general finite element architecture, specifically planar structural elements incorporating both linear and nonlinear geometric effects. In addition the issue of algorithmic state determination will also be addressed in this stage. Lastly, representative simulations will be performed to demonstrate the ability of the formulation to capture the essential macroscopic behavior of shape memory alloys.